Symposium on the Natural History of Inbreeding and Outbreeding; Highland Heights, KY; June 14-15, 1989

Currently within evolutionary biology much controversy surrounds the study of inbreeding. The controversy address the role of inbreeding or, conversely, its avoidance in the evolution of plant and animal social systems. Proponents of one extreme assume the disadvantages of inbreeding (inbreeding depression resulting, for example, from exposure of deleterious recessive alleles) categorically to be large and further that advantages in inbreeding are rare or non-existent. Thus, selection is thought to favor individuals who outbreed. On the other hand, proponents of the other extreme think of inbreeding as having such positive effects (inbreeding "enhancement" resulting from reduced genetic recombination thus potential increased genetic harmony) that any potentially detrimental ones are negligible. In this view, selective advantage is though to accrue to individuals who inbreed. This symposium will bring together leading scientists involved in theoretical and empirical research on inbreeding across taxa. The symposium will facilitate exposure and review of the available data on inbreeding and outbreeding. The symposium will help evaluate both extremes of the controversy, highlighting the valuable parts of each argument and discarding the fruitless. In this way important questions surrounding inbreeding and outbreeding will be identified, focusing future research on them.